SBIR Phase I: Imaging Sensor for Combustion Diagnostics

This Small Business Innovation Research (SBIR) Phase I project aims to develop and commercialize an
imaging sensor capable of rapid, non?]intrusive, spatially?]resolved measurement of temperature, and
concentration of chemical species in combustion systems. This imaging sensor system incorporates
diode lasers, a high?]sensitivity measurement technique based on absorption spectroscopy, and data
analysis routines to provide an unprecedented combination of high?]temporal and high?]spatial
resolution, and multi?]dimensional data. In many applications, information about the spatial and
temporal variation of the properties is critical. Examples include the monitoring and control of industrial
combustors and furnaces, where information about the location of the “ghot spots”h is highly desired; and
the monitoring of indoor air pollutants, where information about the location and diffusion properties
of the contamination sources is critical. The technical goal is a laboratory scale demonstration of the
imaging sensor providing spatial distribution of flow properties.
The broader impacts of this research are that specific markets relevant to this work include both military
and commercial jet engine manufacturers, manufacturers of industrial combustors/burners for power
generation and heat processing, manufacturers of environmental sensors, the academic research
community, and government research laboratories and flight test programs. The initial target
application of the proposed imaging sensor is in the energy and environmental sectors which include the
monitoring and control of combustion systems to reduce pollutant emissions, improve indoor/outdoor
air quality, and maximize fuel efficiency.